A Young Scholars Program in the Laboratory Sciences at UAB

A YOUNG SCHOLAR'S PROGRAM IN THE LABORATORY SCIENCES AT UAB is a project whose purpose is to bring twenty high-school junior from the Birmingham Alabama metropolitan area to the University of Alabama at Birmingham (UAB) campus to participate in a dual program of: (1) individual research in a laboratory science and (2) scheduled seminars and visits to academic, industrial and government research facilities. Students of high ability and/or potential will be chosen for this program with the help of administrators in the major school systems of metropolitan Birmingham. A special effort will be made to encourage minorities and female students to participate in the program. A stipend will be paid to each participant for attending. The research component of the program will give the participants experience in research under the supervision of an academic researcher. The participants will carry out individual research projects. In the areas of specialization of their mentors. The participants will give oral presentations of their research results at the conclusion of the summer program. The program of scheduled seminars and research will provide participants in the program with a structured environment for instruction in research methods, philosophy, ethics of science, and career exploration. Numerus field trips are planned to reinforce the seminar portion of the program. The follow-up activities will consist of a series of seminars during the following academic year, presented by researchers at UAB on their current topic of interest.